U.S.-New Zealand Cooperative Research on the Development of the Continental Crust in the Western Province of New Zealand

This award will support a one-year collaborative project between Professor David L. Kimbrough, Department of Geological Sciences, San Diego State University, and Dr. Andrew J. Tulloch, New Zealand Geological Survey. The scientists will carry out radiometric dating of crystalline basement rocks of New Zealand, with a view toward obtaining more information about geological events in New Zealand associated with the fragmentation of the Gondwana supercontinent, and, more generally, contributing to a better understanding of continental crustal evolution in the circum-Pacific region. The activity takes place under the U.S.-New Zealand Cooperative Science Program. The researchers will measure uranium-lead (U-Pb) isotopic abundances in the mineral zircon, a common trace constituent in the granitic rocks to be studied here. The zircon U-Pb method is a reliable and widely applied technique for determining age relations of geologic events. It is especially useful in studying the plutonic rocks of New Zealand, where other isotope systems in these rocks may have been "reset" by thermal and hydrothermal events subsequent to the initial crystallization of the granite bodies. Facilities for carrying out U-Pb dating of minerals exist at San Diego State University, though not in New Zealand, and so this aspect of the ongoing cooperation between the scientists will be carried out during a research visit by Dr. Tulloch to San Diego. Funds from this award will assist in providing for necessary materials and supplies, as well as for undergraduate student involvement in the research.